Simple Molecular Solids at Ultrahigh Pressure

9304028 Hemley This research sill involve the study of the structural, optical, electronic, and vibrational properties of dense solid hydrogen and related molecular systems at ultrahigh pressures (above 100 GPa) in order to identify, characterize, and understand their transformations to high-density states, including metallic phases. The experiments to be performed will use specially designed diamond-anvil cells coupled with recently developed synchrotron infrared, Raman, and Brilloouin spectroscopic techniques. These will permit detailed study of electronic and vibrational transitions to pressures above 300 GPa and at low temperatures (5 K). Synchrotron x-ray diffraction is to be used to directly determine crystal structure and phase transitions as a function of pressure (50-100 GPa) and tempeature (5-300 K). It will provide additional information on acoustic velocities and anisotropy, the equation of state, and constraints on chemical effects (including impurities and dopants). Finally, the research will continue the development of new methods for probing samples at ultrahigh pressures with the diamond cell. %%% The prediction that hydrogen will transform to a metallic solid a extremely high pressure is a fundamental problem in solid-state physics, materials science, and planetary science. During the past several years, there have been major advances in the ability to produce sustained pressures in the laboratory in excess of those found at the center of the Earth (>300 Giga-Pascals) using the diamond-anvil cell. The present research involves studies of the structura, optical, electronic, and vibrational properties of dense solid hydrogen and related molecular solids at these pressures with these high-pressure devices. Particular emphasis will be given to the application of recently developed infrared spectroscopic techniques that use high intensity synchrotron radiation. These measurements are crucial for identifying the onset of metallization and other electronic transitions in these materials. This work will be complemented by parallel studies using light scattering methods and synchrotron x-ray diffraction measurements of crystal structure. The research will also involve continued development of new high-pressure techniques for a wide variety of studies of the behavior of matter under extreme pressure conditions, including the synthesis of new materials. ***